Topology and geometry of Lagrangian submanifolds and its applications

Abstract

Award: DMS-9971446
Principal Investigator: Yong-Geun Oh

Lagrangian submanifolds are the most important geometric objects
in symplectic geometry. Lagrangian intersection theory is the
core of symplectic geometry, and on the cotangent bundle it is
the symplectification of Morse theory of the base. Recent
results by Oh, Chekanov, Seidel and Polterovich demonstrate that
Floer homology, when defined, is a powerful tool to investigate
topology and geometry of Lagrangian submanifolds. On cotangent
bundles, Lagrangian intersection theory also provides an
interpretation of Morse theory, and when combined with the Floer
homology theory, it encodes symplectic rigidity in a canonical
way. Outside cotangent bundles there are obstructions to
defining a Floer theory that come from the quantum geometry of
Lagrangian submanifolds. Oh proposes to further develop
functorial constructions in the Floer theory and to apply them to
problems related to symplectic topology and mirror symmetry.
Other research concerns the variational problem of minimizing
volume of Lagrangian submanifolds on Kaehler manifolds, which is
closely related to Harvey and Lawson's theory of special
Lagrangian submanifolds. Special Lagrangian submanifolds are a
key to the geometry of holomorphic volume preserving maps, in the
way that Gromov's theory of pseudo-holomorphic curves played such
a role in the study of geometry of symplectic maps. Oh proposes
to study various analogies between the geometry of holomorphic
volume preserving maps to that of symplectic maps in complex
Euclidean spaces (e.g. a version of non-squeezing theorem).

The process of constructing a quantum formulation of a system
from a knowledge of a classical approximation is called
``quantization'' in physics. The lesson learned from history is
that it is hard to quantize mechanics or geometry, and when a
mechnical system is quantizable, it reveals a very particular
physical and geometrical nature. However, quantum formulations
of 3 and 4 dimensional topology have been essential ingredients
in recent breakthroughs in low dimensional topology and it was
essential to quantize classical (differential) topology to derive
the most delicate non-trivial differential invariants.
Lagrangian submanifolds are the most important geometric objects
in symplectic geometry and play a key role in the geometric
quantization and in the recent development of mirror symmetry and
string theory in physics. This research will aim at, on the one
hand, carrying out this quantization program of differential
topology and, on the other hand, understanding the inter-relation
between symplectic, Riemannian and complex geometries.